A Mechanistic Study of Two Important Reactions Involving Transition Metal Carbonyl Hydrides

This project in the Inorganic, Bioinorganic and Organometallic Chemistry Program is in the area of organometallic chemistry and is part of the Research in Undergraduate Institutions activity. The research will provide an excellent introduction to organometallic chemistry for undergraduate chemistry majors. The aim of the project is to establish the intimate mechanisms and determine the scope of two classes of organometallic reactions. The first of these is the selective reduction of nitroaromatic compounds by the irontetracarbonyl hydride anion, a reagent which reduces the nitro group selectively even in the presence of such reducible groups as aldehydes and acid halides. The second class of reactions is the oxidation of alkoxides by mu-hydridodecacarbonyldichromium or -ditungsten anion. The latter class of reactions involves formation of a transition metal alkoxo intermediate complex, which subsequently undergoes beta-hydride elimination to give an aldehyde or ketone. Detailed kinetic studies will be made in order to establish the stoichiometry and the rate law for numerous specific examples of each class of reaction. Systematic variations in the oxidant and reductant will be used to establish the scope of each class of reaction.